SGER: Computational Topology for Surface Reconstruction

ABSTRACT
0226504
Thomas Peters
U of Connecticut

Research on surface reconstruction has prospered by productive interactions between computational
geometers and classical topologists. The initial reconstruction techniques on unorganized point
data relied upon visual inspection to verify topological correctness. Recent advances have led to
rigorous sufficient conditions that guarantee correct topological form first, by equivalence under
homeomorphisms and subsequently by the stronger ambient isotopy. These theoretical advances
have led to improved surface reconstructions for reverse engineering and medical modeling for a
significant subset of the surfaces considered in those applications. This prompts a speculative
unifying intellectual question: Can contemporary modifications of classical difierential geometry,
topology and knot theory lead to a broader scope for computational topology that will result in
further algorithmic improvements? More specifically, can these classical mathematical tools be
applied to extend the domain of surface reconstruction algorithms? This research will explore
how this already successful synergy between classical mathematics and computer science can be
accelerated. Graduate student support is requested and this successful project outcome will then
serve as an exemplar for further student involvement in interdisciplinary work between computer
scientists and mathematicians.